Calculus & Mathematica at Ohio State

The Calculus & Mathematica course initiated at the University of Illinois and further developed at Ohio State is being extended to second year calculus. The focus is on development of materials, testing them in the class room, and revising them in light of the experience gained. Student outcomes are being assessed and the results will be reported to the community.